Novel Matrix Problems in Modern Applications

Matrix computations are ubiquitous in scientific and engineering applications.
The existence of high-quality algorithms and resulting software packages, such as
LAPACK and MATLAB, greatly alleviates the burden on scientists and engineers, allowing
them to devote their energy to the particular application at hand.

This proposal is addressed towards identifying and solving some novel and fundamental matrix
problems that arise in modern applications. The last decade has
seen significant advances in communications technology and infrastructure;
prime examples are the world-wide web, wireless computing and sensor networks.
These modern applications lead to a vast variety of interesting problems --- these range
from complex design constructions, data warehousing and retrieval problems, to the need for
intelligent analysis of huge amounts of data. As a response to these needs,
many new matrix problems arise that need to be solved robustly and efficiently.

Some of the most challenging problems in the analyses of large data matrices are the
related problems of clustering, co-clustering (simultaneous clustering
of rows and columns), and matrix approximations. In many applications, the data
is not Gaussian, and hence traditional techniques, such as singular value
decomposition (SVD) and classical Euclidean k-means are often inadequate.
The proposed project formulates new matrix approximation problems related to
co-clustering: these formulations appeal to a generalized maximum entropy principle
to search for structured matrix approximations that arise naturally for an important
class of statistical distributions, known as exponential families. The aim of the
project is to develop the theory as well as robust, numerical software for these
matrix computations.

Another important class of problems contains varied inverse problems: given
a set of desirable properties, construct a data matrix that satisfies these properties.
Such inverse problems arise in diverse applications, such as the design of
kernel similarity matrices for statistical learning and the design of Gram matrices
with low cross-correlations for wireless communications. The plan is to
use alternate projection schemes, and numerical optimization to solve such design
problems. The outcome of the project would be a unified framework for these inverse
problems, including modeling, algorithms and software.

It is anticipated that there will be two broad research impacts of the proposed project.
The first contribution would be to applied mathematics and computer science
--- the formulation and proposed solutions of the novel matrix problems that
arise naturally in applications. It is hoped that the proposed work will vitalize the
search for better algorithms, and further deepen the connections between applied mathematics
and engineering. The second contribution would be to the applications themselves. Posing particular
application tasks in terms of well-defined matrix problems should lead to faster
and more reliable methods.

The project will support the graduate education of 2 or 3 students. These students will be trained in the
multidisciplinary areas of computational linear algebra, data mining, statistical pattern recognition and
wireless computing. Specialized courses in all these areas are available in the Computer Science,
Applied Mathematics and Electrical & Computer Engineering departments at UT Austin.
Such a broad education will fill the need for substantial academic and industrial demand in these
multidisciplinary areas for educated personnel.
The project will also support research experience for one undergraduate, and a conscious effort
will be made to recruit women and minority students.
Results of the project will be published in the linear algebra, data-mining, and information theory
literatures, contributing to each of these areas as well as their cross-fertilization.
Data and software developed under the project will be shared with the scientific community
via a public web site.